GaAs MESFET Characterization and Modeling for High- temperature Integrated Circuit Applications (25-250 C and above)

This research concerns the effects of elevated ambient and substrate temperatures (25 C to 250 C or higher) on the terminal characteristics of integrated GaAs MESFETs. The work will focus on the detailed experimental and analytical modeling of large and small signal parameters of the transistors, with particular emphasis on temperature-induced shift of threshold voltage as a result of backgating, and variations of small-signal output conductance gd=dID/dVgs with temperature and frequency. The most likely beneficiaries of severe-environment high-speed integrated circuits include the automobile, the aircraft, the space and geothermal exploration industries, all of whose projected electronics applications for the 1990's and beyond will exceed the capabilities of silicon. This work thereby anticipates the forthcoming needs of a large and important sector of U.S. industry.